Improving the Chromatographic Components of Cell Biology andBiochemistry Laboratories at Hood College

Laboratory experiences in biochemistry and cell biology at Hood College are being improved significantly through the recent acquisition of a high performance liquid chromatograph (HPLC). Through the use of this instrumentation in the preparation and analysis of proteins and nucleic acids, students are developing capabilities in modern separation techniques while gaining a better appreciation of physiological processes at the molecular level.